International Conference on Narrow Gap Materials, Gaithersburg, Maryland, June 12-15, 1989

This proposal is for support of the International Conference on Narrow Gap Materials to be held in June, 1989. The last conference of this nature occured in 1981. Much progress in this field has happened since then. NSF funds will be used primarily for support of students, postdoctorals and young principal investigators.